Stiffness and Strength Characteristics of Fiber Reinforced Plastic (FRP) Composite Connections

9415053 Mosallam The main objective of the research project is to investigate both theoretically and experimentally the behavior of frame connections for pultruded fiber reinforced plastics (PFRP) using molded composite connectors. The focus will be given to the static (short-term & long-term), as well as the performance of the Universal Connector/PFRP connections under cyclic loads.